Raman, Brillouin, Infrared and Modulation Spectroscopy of Collective and Localized Excitations in Tetrahedrally Coordinated Semiconductors

9800858Ramdas This research by Professors A.K. Ramdas and S. Rodriguez of the Department of Physics of Purdue University is focused on the investigation of novel spectroscopic phenomena exhibited by a range of tetrahedrally coordinated semiconductors which share common features in their atomic architecture, lattice dynamics, and electronic band structures. A rich program of investigations will be pursued, including the study of the nature of the electronic states of donor-bound electrons and acceptor-bound holes in isotopically controlled diamonds, in silicon carbide polytypes, and in II-VI compound semiconductors by Fourier transform infrared (FTIR), Raman, and photoluminescence spectroscopy. Also piezo- and magneto-spectroscopy will be used to deduce the site symmetry of the impurity, and the degeneracies, deformation potential constants, and g-factors characteristic of its bound states. Further, localized vibrational and gap modes of isoelectronic and compensated impurities in II-VIs, I-III-VI2, and II-IV-V2 chalcopyrites will be studied by FTIR as are the sp-d and d-d exchange interactions as revealed in the magnetic excitations in the II-VI and chalcopyrite based diluted magnetic semiconductors. These and other phenomena and systems constitute a wide ranging research program whose contributions to various areas of contemporary solid state physics and materials science will aid in our understanding of the fundamental behavior of novel materials and assist in their incorporation in varied technological devices. %%% This research by Professors A.K. Ramdas and S. Rodriguez of the Department of Physics of Purdue University is focused on the investigation of novel spectroscopic phenomena exhibited by a range of tetrahedrally coordinated semiconductors which share common features in their atom ic architecture, lattice dynamics, and electronic band structures. A rich program of investigations will be pursued, including the study of the nature of the electronic states of donor-bound electrons and acceptor-bound holes in isotopically controlled diamonds, in silicon carbide polytypes, and in II-VI compound semiconductors by Fourier transform infrared (FTIR), Raman, and photoluminescence spectroscopy. Also piezo- and magneto-spectroscopy will be used to deduce the site symmetry of the impurity, and the degeneracies, deformation potential constants, and g-factors characteristic of its bound states. Further, localized vibrational and gap modes of isoelectronic and compensated impurities in II-VIs, I-III-VI2, and II-IV-V2 chalcopyrites will be studied by FTIR as are the sp-d and d-d exchange interactions as revealed in the magnetic excitations in the II-VI and chalcopyrite based diluted magnetic semiconductors. These and other phenomena and systems constitute a wide ranging research program whose contributions to various areas of contemporary solid state physics and materials science will aid in our understanding of the fundamental behavior of novel materials and assist in their incorporation in varied technological devices. The research is conducted jointly with graduate students and post doctoral research associates. This collaboration serves to train the next generation of scientists and engineers ***